Oceanographic Instrumentation

The School of Oceanography at University of Washington will acquire components for a modern six-channel autoanalyzer that will be placed in a pool of shared use equipment. This equipment is maintained for use on or in association with research vessels operated by the University. The instrument- ation will also increase the capabilities of the ship and of the institution to support research and engineering activities. This new device will replace existing and outmoded equipment that is no longer serviceable and will be operated as a shared use facility. The instrument provides rapid and accurate measurements of several nutrients and chemical constituents in seawater samples. Such measurements are important in modern oceanographic and marine biological investigations. The instrumentation described above will increase the capability of the University to support NSF-sponsored research, engineering, and education projects.